US-Nepal Workshop: Land-Use/Land-Cover Change in the Hindu Kush-Himalaya, April 1997, Kathmandu

9604833 Graumlich Description: This award supports the U.S.- Nepal Workshop: Dynamics of Land-Use/Land-Cover Change in the Hindu-Kush Himalaya, April 1997, Kathmandu. The conveners, Lisa Graumlich, University of Arizona and Sharad Adhikary, Himalayan Climate Center, Kathmandu will assemble a group of U.S. and Asian researchers from the social sciences, biophysical sciences, and remote sensing to evaluate the impact of land-use/land-cover change on the environment and global climate. Scope: The principal purpose of the joint workshop is to evaluate the state of knowldege for the HKH region and to describe a plan of action for the development of key interdisciplinary, integrative studies that will allow credible projection of future changes. The Himalayan Climate Center is the principal promoter of research on climate and environment in the Himalayan region. Proceedings of the workshop including review articles and contributed papers will be published. ***